Damage from Million Electron Volts (MeV) Cluster Ions

9730839 Tombrello This project utilizes a combined modeling-simulation/experiment approach to advance understanding of cluster-atom trajectories and track morphologies in solids from MeV cluster ions. Ion implantation into semiconductors for doping and other processing continues in prominence, and with multiple ion and cluster source availability basic understanding of the fundamental processes involved can provide future guidance for utilization in electronic/photonic materials processing. The overall objective of the project is to employ computer simulations to extract basic knowledge from laboratory experiments. Since the physics of the interaction between the ion-ion cores of the cluster atoms is not known for clusters traveling in solids, the simulations include this needed information only as a parameter. By comparing the results with various experiments, increased understanding of these interactions can then be gained. %%% The project addresses basic research issues in a topical area of materials science having high potential technological relevance in semiconductor processing. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic device and circuit fabrication. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***